Analytic Problems in Geometry

9706507 Yang Yang proposes to study three problems in an analytic approach to conformal geometry. The first problem is the variational problem: to minimize the square integral of the Weyl tensor of a four dimensional manifold. The optimal conformal class which achieves the extremal will have a canonical metric which is often Einstein, conformally flat, or half conformally flat. The second problem is to find apriori estimates for solutions of the prescribed scalar curvature problem on spheres of dimension greater than three. It is expected that there will be a new phenomenon to be understood which does not arise in the case for spheres of lower dimensions. The general goal is to find general conditions for the solvability of the Nirenberg problem in these dimensions. The third problem is to investigate regularity property of critical maps of conformally invariant energy functionals. For biharmonic maps in four dimension, such regularity result will permit the construction of biharmonic maps of four dimension which represent an arbitrary homotopy class. Yang has already made good progress on this problem. The project represents an analytic approach to the study of four dimensional spacetime which may or may not model the actual physical spacetime in which we live. The idea is to study various global quantities attached to each spacetime that reflect the local geometric structure. We then look for the spacetime that optimizes these global properties. The ones that do often have nice properties and may allow one to eventually classify the set of all possible spcetimes. The three projects outlined above are technical aspects that need to be developed to carry out such a program.